Control Techniques for Complex Networks

This proposal concerns policy synthesis and performance evaluation for complex systems. Research
will focus on the development of methods to achieve reliability in complex networks that
are subject to substantial variability. Speci.c topics include resource allocation, performance
evaluation, and new approaches to fast simulation and adaptation. Power transmission networks
are taken as a primary application of this research, and will guide the directions for theoretical
research.
Intellectual Merits
The proposed research will build upon recent advances in stochastic systems and stochastic networks
to bring new approaches to model reduction and policy synthesis for complex, interconnected
systems. The project will also serve as a bridge between researchers in economics and
control systems to synthesize recent innovations from these .elds.
The most basic issue addressed in this project is complexity management. In a variety of
applications one seeks control solutions of reasonable complexity in spite of the complexity of the
system to be controlled. It is very important that the solution provide some intuition to the user
for the purposes of both prediction and policy improvement.
Centralized optimal control solutions will be used as a benchmark in analyzing decentralized
policies, and as a tool for constructing appropriate market mechanisms to ensure reliability in a
decentralized setting.
Traditional economic analysis to address reliability in power distribution systems is based on
a static (equilibrium) model. While much insight has been gained, just as in the design of a
control system for an airplane, a static equilibrium model is inadequate to address robustness and
reliability. The PIs have shown recently that it is possible to construct tractable dynamic models
of power distribution systems that reveal insight on the sources of low reserves in a decentralized
setting. The discovery of new methods to combat these de.ciencies is a major goal of this research.
Broader Impact
Fundamental research on accelerated algorithms for learning and simulation has potential impact
in various .elds, including computer vision and data mining. Similarly, the control techniques
to be developed are based on minimal structural assumptions, and consequently there is high
probability of crossover into various .elds.
Research on large-scale electric power has tremendous potential commercial impact. A clear
understanding of the dynamics of deregulated markets will provide for the .rst time a proper
evaluation of the social value of reliability, and the construction of e.ective incentives and policy
tools to ensure e.cient market outcomes. These results will provide forecasting tools for policy
makers to predict behavior of users and suppliers, and design mechanisms to ensure reliable and
e.cient service.
A CSL-ECE-Economics Department seminar series on distributed networks will be initiated.
Professors will be invited from across the country, and as far away as India to present recent work.
This will strengthen existing collaborations within the University of Illinois as well as the broader
research community in the networks area. The seminar series will also provide excellent training
for the students involved.